Interoperable Data Files for High-Performance Computing

This proposal addresses the problem of providing high-performance access to interoperable data files. Scientific databases have been touted as being the solution to the I/O problems faced by scientific applications. Based on relational, object-oriented, or hybird data models, these systems help to improve the access times to the data. In some cases they even permit parallel access to the database. However, these systems do not address the problem of interoperability. We propose to synthesize our previously-independent research in both of these areas to create data files that support both high-performance parallel access and interoperability. More importantly, we propose to develop access methods as a part of the system interface that incorporate the notion of collective I/O for high-performance, functions that can learn from access patterns to further improve on performance for future access patterns, and a data description language that allows users to define abstract file types and specify layouts and other hints that will improve access while maintaining interoperability.